Acquisition of a 400 MHz NMR Spectrometer for Research and Teaching

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) and Major Research Instrumentation (MRI) Programs, the Department of Chemistry at the College of Wooster will acquire a 300 MHz NMR Spectrometer. This equipment will enhance research on 1) studies of complexes of peptides and phosphate compounds, which serve as models for Ca(II)-mediated protein-membrane interactions; 2) aziridinium carbonylation reactions for synthesis of beta-amino acid analogs; 3) mutants of rabbit muscle creatine kinase; and 4) three-dimensional structure determination of a heat shock protein.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.